Studies on the Cytopathogenic Protein from Naegleria Ambebaeand its Activities in Cultured Vertebrate Cells

Free living amoebae of the genus Naegleria were found to contain a filterable agent (NACM, Naegleria amoeba cytopathogenic material) that could destroy a variety of vertebrate cells in culture in a highly distinctive manner. After a delay of 4-6 days, a new product, detected by monoclonal antibodies made to NACM, developed in the cytoplasm of the treated cells at a time shortly preceding the rapid and complete disintegration of the entire culture. Active products from such cells could be passaged on new cultures. The objective of this investigation is to identify by amino acid sequence the biologically active NACM and to use this identity to determine the causal relationship between it and the new cell products. The isolation methods include hydrophobic interaction, gel permeation, and affinity chromatography, followed by preparative and analytical electrophoresis. The identification methods include bioassay, determination of amino acid sequence, peptide synthesis and antibody production and use in immunoassays, immunochemical identification, quantitation, and analysis. %%% Essentially, NACM is a protein which, in some as yet unknown fashion, triggers in cultured vertebrate cells both the production of more of itself (or a close homolog) and the specific death of the cell. Elucidation of the mechanism underlying the NACM phenomenon could have broad implications for biology.